SBIR Phase I: Novel Membrane-Electrode Assembly for High-Temperaure PEM Fuel Cells

This Small Business Innovation Research Phase I project is directed at developing novel high-temperature membranes/MEA for PEM fuel cell system for next generation vehicle (NGV) application. The overall objective is to operate PEM fuel cell at 120-150C to achieve high cell performance, improve CO tolerance, mitigate water and thermal management challenges and reduce system cost. The technical approach is to develop high-performing MEA consisting of membranes of high water retention capability and cathode of low polarization at high temperatures.

High-temperature PEMFC is attractive due to its unique characteristics of simple system design. Such a clean, high-efficiency and simple system is very attractive for NGV. The main commercial market will be NGV passenger car and bus. Other markets will include mobile/portable power, ship, and commercial/residential building applications..